Project CABLE (Chemistry and Biology Laboratory Education)

The Community College is located on the Lac Courtes Oreilles Reservation of rural Northern Wisconsin. The College population is 95% Native American, of which 70% are women. Due to the isolation of the Northern Wisconsin woodlands and the limited resources of the students, the College has become the focal point of educational services within the area. Prefiously science courses were taught with a minimum of laboratory work. Instuctors prepared demonstrations for students to view in the local high school laboratory which is not equipped for scientific investigation beyond the secondary curriculum. The new laboratory equipment is providing the means to begin to explore Biology and Chemistry beyond the post-secondary level. Furthermore, Native American students are being given the opportunity to research scientific concepts at the experimental level which is consistent with Native American learning styles. The grantee is matching the award from non-Federal sources.